Performance and Complexity of CDMA Networks With Coded Modulation

The optimum demodulator for spread-spectrum multiple access systems is known to be extremely complex and not practical for implementation except for a very limited number of users. Several suboptimum receivers have been found to achieve near optimal performance (in the absence of coding) with much reduced complexity. In addition, it is known that for spread-spectrum systems coding can significantly improve the performance in a jamming and multiple-access environment. This project is an investigation of the performance of coded spread-spectrum multiple-access systems with various types of near optimal, but reduced complexity, decoders and demodulators. The aim is to design reduced complexity decoders and demodulators that achieve a favorable tradeoff in complexity and performance.